Studies of High Phenomena Using Muons

***
9803785
Hedin
The efficient detection of muons in collider experiments is challenging, but crucial to the verification of the theory known as the Standard Model and the discovery of new phenomena. This group's expertise is in muon detection, as applied in the D0 experiment upgrade at Fermilab and in the US ATLAS detector construction project.
***